Fundamental Studies of Fluorocarboranes and Nanoclassical Metal Carbonyls

This award in the Inorganic, Bioinorganic, and Organometallic Chemistry Program supports research on weakly coordinating anions and cationic metal carbonyls by Dr. Steven H. Strauss of the Chemistry Department, Colorado State University. Salts of reactive metal cations with polyfluorinated closo carborane weakly coordinating anions (WCAs) will be synthesized and characterized structurally, chemically, and spectroscopically. These weak counterions are stable under harsh chemical and thermal conditions, making them interesting species for use in synthesis of new polyelectrolyes, solid state catalysts, and aerogels. New cationic metal carbonyls with little or no pi backbonding will be synthesized, using WCAs as counterions. The goal of this part of the project is to understand the structure, bonding and chemical reactivity of these novel nonclassical metal carbonyls. Theoretical calculations will be used to help elucidate the experimental results.

Negatively charged species, anions, are needed to balance the positive charge of cations. Here weakly coordinating anions are used to stabilize positive metal-containing ions while minimizing charge distortion. This makes it possible to characterize metal-carbonyl bonding in states that are important transients in many processes important in industry, such as gas purification, water-gas shift catalysis, and methanol synthesis catalysis.